Picosecond Rotational Diffusion Studies Using Time-Resolved and Phase-Resolved Spectroscopy

This project is in the general area of Analytical and Surface Chemistry and in the subfields of molecular spectroscopy and separations science. The thrust of this experimental program,under the direction of Professor Mary Wirth of the University of Delaware, focuses on the applications of molecular reorientation measurements to the field of analytical chemistry. The overall goal of the research is to determine the amount of solute geometry information that can be obtained by quantitative measurements of rotational diffusion parameters. This goal will be achieved by studying 1) solutes that are very similar in structure to one another, e.g. isomers, 2)large polynuclear aromatic hydrocarbons suspected of changing conformation in strong chromatographic solvents, 3)solute attachment to micelles and to silica surfaces, and 4) solute/solvent systems having poorly understood solvation interactions. The research proposed here will be used to examine the rotation of various molecules in different solvents. Lasers will be used as probes to measure this rotation as well as the interaction of these molecules with the various solvents. Molecules that are very similar in structure as well as large organic molecules composed of carbon and hydrogen will be used in this study. The results of these studies may be used to predict the separation of similar molecules in liquid chromatography.